SCC STEM Project

The project is a direct result of a funded NST TCUP Planning Grant. It has been determined that recruitment,
retention, and research are the greatest needs. Students at SCC will build its capacity to offer
STEM disciplines through reformed STEM coursework, research, and internship activities. The
proposed activity will yield data which will assist SCC in STEM enhancement. This approach
will also provide facilitate matriculation of our two-year graduates into a four year institution of
higher education or the job market. Faculty will develop a research base and research agenda,
which will involve all SCC students, faculty members, and other tribal programs.